US 2013 Combustion Meeting, Park City, Utah May 19-22, 2013

Abstract

1265611
Sutherland, James C.

The US 2013 (National) Combustion Meeting will bring together experts of a wide range of areas related to combustion and fire, from academia, industry, and government agencies, where exchange of ideas and research results and brainstorming take place among attendees. The proposed funding is to provide travel support to students who will be presenting their research at the meeting.